High Speed Networking for Connection Machine

This award is for the acquisition of networking equipment required for more effective utilization of an existing Connection Machine CM-2. There are a number of research projects using the CM-2 including: visualization of parameterized Julia sets, computational geometry on a SIMD architecture, simulations of magnetic films, simulation of quantum chromodynamics, and multiple target tracking algorithms for radar applications. The effective use of a high speed, highly parallel computer requires high speed data links. This award is for the construction of a fiber optic network linking five sites at Boston University to a large Connection Machine (CM-2). The research supported by this computer includes mathematical, computer science, electrical engineering, physics, and signal processing applications. The award will make the Connection Machine more accessible and better utilize its high speed computing capabilities.